Postdoctoral Fellowship: EAR-PF: Quantifying Copper-Iron Isotope Fractionation and Redox Partitioning in Sulfide Leaching of Critical Minerals

Copper is essential for electrical infrastructure, energy technologies, buildings, communications, transportation, and national defense. However, a large share of copper in sulfide ores remains unrecovered after conventional leaching because mineral surfaces become coated or sealed. This project will develop isotope-based chemical fingerprints that reveal when and why copper release is limited during sulfide leaching. The project will support more efficient recovery of copper from material already mined, reducing pressure to open new mines while strengthening domestic mineral supply. The same tools will also provide information about metal movement in legacy mine drainage systems. The fellowship will provide training opportunities for the fellow and undergraduate researchers.

This project will quantify how copper and iron isotopes record sulfide dissolution, redox transformations, and passivation under controlled and field-relevant conditions. The central hypotheses are that copper isotopes will fractionate systematically during mineral-specific dissolution and redox transitions, and that iron isotopes will shift during iron oxide precipitation before conventional chemical measurements clearly reveal passivation. Bench-scale flow-through columns will leach single-sulfide and mixed-sulfide materials across controlled gradients in pH, redox potential, and ligand chemistry. Time-resolved leachates will be analyzed for copper and iron isotopic composition, and major-element concentrations, while reacted solids will be characterized chemically and mineralogically to connect isotope signals to mineral-surface transformations. Field transects at legacy hardrock mine sites, including Summitville, Colorado, will test whether laboratory-derived fractionation factors and passivation thresholds apply in chemically heterogeneous drainage systems. Laboratory and field results will be integrated into an isotope-aware reactive-transport model that predicts behavior of copper and iron during coupled reaction and flow. The project will provide quantitative benchmarks for sulfide weathering, acid mine drainage, and heap-leach systems, enabling more defensible decisions about critical-mineral recovery and mine-water management.